Experimental, Analytical, and Computational Study of Nematic Optical Elastomers

9700199 James Optical elastomers, formed by cross-linking of polymeric liquid crystals, possess important properties, such as stress-induced optical switching, stress induced shifts in phase transition temperatures, piezoelectricity, etc., that make them promising candidates for industrial applications such as in integrated optics. The response of these materials under biaxial loading is experimentally investigated in this project. The observations from these experiments are being used to develop predictive tools that will enhance the understanding of mechano-optical behavior of these materials and thus the ability to effectively use these materials in industrial setting. ***